Spectral Invariants and Low-Dimensional Topology

DMS-0202148
Paul Kirk

The PI proposes to study computations and applications of
spectral invariants, in
particular the eta-invariant of generalized Dirac operators, to
problems in geometric topology and geometry. The focus will be to
use analytic and differential geometric machinery to study spectral
flow, the Atiyah-Patodi-Singer rho-invariant, and the
$SU(3)$-gauge theoretic Casson invariant. The main goal is to
develop usable cut-and-paste machinery for spectral invariants using
the theory of boundary-value problems for Dirac operators.

The PI's work in pure mathematics has as its goal the solution and
clarification of geometric problems in 3 dimensions. The setting of
3 dimensions on the one hand is familiar to all of us since the
universe we live in is 3-dimensional. But geometric problems in this
area turn out to be very difficult for the odd reason that in such
low dimensions there is "not enough room to move." The PI's approach
to the area is to combine traditional 3 dimensional techniques with
methods from other mathematical disciplines such as differential
geometry and analysis.